ITR: Dynamic and Secure Distributed Collaborations

The focus of this project is on the development of conceptual
foundations along with a middleware infrastructure for rapid
construction of dynamic and secure distributed collaborations. This
project is investigating techniques for constructing dynamic
collaboration environments from their high-level specifications. These
specifications are interfaced with a middleware to build the desired
environment. This project is developing techniques for specifying a
collaboration plan using XML and mechanisms for a mobile agent based
middleware for implementing such a plan. A collaboration specification
identifies the participants in a collaboration by their roles, and also
specifies the associated role-based security policies. It specifies the
shared objects together with the coordination and workflow requirements
for information flow among the participants. Mechanisms are being
investigated for participants to dynamically join or leave an environment.
These include mechanisms for authentication of a participant's
credentials, assignment of roles, and discovery of resources by a
participant. These mechanisms and services are integrated in an
agent based middleware, using the Ajanta agent programming system,
for constructing distributed collaborations. This middleware investigates
use of mobile agents for building transportable user interfaces,
for executing remote coordination actions, and as mobile workflow
objects. It also provides support for resource discovery, naming, event
management, and security.